Microfabrication of Ophthalmic Surgical Knives - Process Development and Mechanical Design

9419043 Rader This project supported under the technology Development activity area of the Technology Reinvestment Project (TRP), is designed to develop processes for the manufacturing of micro surgical knives. Bulk wet etching of silicon has been well developed, and recent research interest has focused on fabricating structural components using semiconductor processing technology. In the intermediate size scale of the proposed surgical scalpels (larger than integrated circuit features, smaller than traditionally machined components), silicon is not a structural material. Previous research has shown the potential for bulk forming structural shapes from harder ceramic materials such as sapphire. The potential gains from the development of processing for both commercial and defense related structures will be examined herein. %%% The objective of the TRP is to stimulate the transition to a growing, integrated, national industrial capability which provides the most advanced, affordable, military systems and the most competitive commercial products. TRP programs are structured to expand high quality employment opportunities in commercial and dual-use technologies, manufacturing and technology assistance to small firms, and education and training programs that enhance US manufacturing skills and target displaced defense industry workers. This specific project is a joint venture between the personnel at the Storz Ophthalmic Instruments Company and the Microsurgery Advanced Design Laboratory, Johns Hopkins Hospital. ***